Built-In IDDQ Sensors for Deep-Submicron Circuits

This proposal is on developing new methodologies for VLSI chip manufacturing test built using very deep submicron technologies. Existing test methods do not scale up because of increased background currents that will exist. The approach is to explore the quiescent current (IDDQ) signature approach by using magnetic filed measuring techniques, and to develop and apply built-in current sensors (BICS) to provide the ability to distinguish between faulty and fault-free IDDQ levels. This problem is caused by the increase in subthreshold leakage currents with each technology generation. The BICS design goals include microampere resolution, 1% area overhead, and 1 ms measurement time. Further, the project is developing design methods to automatically place BICSs into a mesh-type supply network to achieve maximum coverage and resolution. Research problems include: the need to shut off the power supply during BICS calibration; an accounting for large variations in fault-free IDDQ levels caused by process, environment and circuit state variations. Methods to improve limit setting by extending the current siganture methodology are being explored by using model-based estimates of normal IDDQ levels (derived from simple electrical tests), and by exploiting the spatial correlation of BICS measurements. Algorithms and software demonstrating these ideas are being developed.